Signal Transduction Pathways Controlling Skeletal Myogenesis

9317640 Taparowsky Understanding how programs of cellular growth and differentiation are regulated during morphogenesis represents one of the fundamental experimental goals in cell and developmental biology. Skeletal muscle provides an excellent model system for investigating these programs due to the availability of cultured myogenic cell lines and the wealth of information on the molecular mechanisms regulating muscle specific gene expression. Recently, the developmental control of skeletal myogenesis has been linked to the activities of a family of muscle regulatory factors (MRFs) that function to convert undetermined cell types to committed myogenic lineages and to trans-activate muscle specific gene expression. Intrigued by the possibility that MRFs may represent a common target for the actions of several inhibitors of myogenesis in culture, Dr. Taparowsky's laboratory demonstrated that oncoproteins (Ras p21 and Ad5 E1A) and growth factors (bFGF and TGF-beta) antagonize skeletal muscle differentiation by down regulating expression of MRF genes, such as MyoD, and/or by interfering with MyoD protein function. To extend these studies, this proposal is designed to investigate the intracellular pathways through which MyoD activity is regulated by these inhibitors. Since MyoD is a phosphoprotein, the role of phosphorylation in modulating MyoD function will be established. In addition, the role of specific protein kinases in directly phosphorylating MyoD, or otherwise contributing to the inhibition of myogenesis, will be explored. Experiments to integrate the activities of protein kinases into the signal transduction pathway(s) initiated by bFGF or TGF-beta (and perhaps mediated by Ras p21) will be examined using kinase inhibitors and dominant negative mutations. The long term goal of these studies is to provide a complete picture of the molecular pathway(s) through which the effects of negative and positive factors are delicately balanced to regulate this im portant developmental pathway. ***